A Faculty Workshop Based on Recent Nobel Experiments

9353923 Smith A laboratory workshop based on recent Nobel experiments will be offered for undergraduate faculty from two- and four-year colleges throughout the nation. Participants in this three- week long, summer workshop will carry out up to six experiments based on recent Nobel prize-winning work: 1987 Nobel Prize for High Temperature Superconductivity; 1986 Nobel Prize for the Scanning Tunneling Microscope; 1983 Nobel Prize for Nuclear Reactions and Nucleosynthesis; The 1981 Nobel Prizes for Electron Spectroscopy, Non-Linear Optics, and Laser Spectroscopy; and the 1977 Nobel Prize for the Quantum Nature of Solids. The Nobel Experiments Workshop will offer participants "hands-on" laboratory experience using up-to-date instrumentation purchased with a recent ILI Grant from the NSF. Participants will interact daily with local and national experts on the various topic areas of Modern Physics, and work to develop instructional materials for teaching the physics concepts to science students. Continued contact with the participants will be maintained through a newsletter and electronic mail. The intellectual stimulation and personal involvement experienced by the participants will help them to relay the excitement of science to students at their home institutions. ***